Integration of 4G Heterogeneous Network Laboratory into the Electrical and Computer Engineering Undergraduate Curriculum

Computer Engineering (32)

A Fourth Generation (4G) heterogeneous laboratory is being developed in this project, with the overarching goals of (1) improving student learning in networking, communications, and multimedia by undergraduates in a 4G environment, and (2) increasing interest and participation in electrical and computer engineering (ECE) by undergraduate students. The laboratory gives students hands-on experiences in a heterogeneous environment that intertwines wired, wireless, cellular, and sensor network technologies. Traditional ECE courses in analog and digital data networks, wireless networks, and multimedia communications systems are being revised to take advantage of the new laboratory environment and to provide learning opportunities that are representative of modern communication technologies. The laboratory and related curricula serve as a model for learning about and working with 4G network technologies that is being evaluated for its effectiveness and that can be deployed at other institutions.